SBIR Phase I: An Advanced Elutriation System for Cell Processing and Culture

This Small Business Innovative Research (SBIR) Phase I project aims to develop a revolutionary elutriation chamber with the unique ability to select specific cell ranges and then hold these cell in a dispersed, free floating fashion. The selected cells can thus be sorted and decontaminated in a single step. The overall aims are to substitute the current trial and effort approach to cell decontamination with a detailed experiment one with a commercial outcome.

The project aims at developing the technology for licensure to blood banks, hospital and others that are in need of cell decontamination assays.